Mathematical Sciences: Diophantine Approximation and Diophantine Equations and Inequalities

This research will continue the principal investigator's study of Diophantine Equations and Diophantine Approximations. One of the main areas of research will continue to be on obtaining upper bounds for the number of integral solutions of Thue's equation and Thue's inequality. The bounds are to involve the number of variables occurring and not the height of the coefficients. A modified version of the method developed by the principal investigator and W. M. Schmidt is expected to apply to some of the problems in this proposed research which are generalizations and applications of the principal investigator's current and prior research. The principal investigator also intends to investigate problems in simultaneous Diophantine Approximation.